Phase Segregation in Multicomponent Polymer Mixtures

9807601 Olvera This grant supports theoretical research on phase segregation in multicomponent polymer mixtures. Polymer blends are highly immiscible viscous fluids. Complex microstructures are observed during the decomposition into multiple phases. The patterns of the decomposing fluids are expected to be affected by flow. Here a systematic study will be conducted of hydrodynamic effects on the decomposition process as a function of the concentrations and degrees of polymerization of the blend components, as well as of their net repulsive interactions. Blends decomposing into two and three phases will be analyzed. Level set theory will be used to analyze interface behavior. The time-dependent microstructures under externally applied flow will also be studied. Preliminary results suggest that the break-up of the interconnected patterns found in ternary blends is strongly nonlinear. That is, the third phase rich in the minority component growing at the interfaces of the majority symmetric phases forms connecting fluid filaments that break up into mother drops with satellite droplets. This mechnaism greatly affects the growth rate of the minority phase. %%% This grant supports theoretical research on phase segregation in multicomponent polymer mixtures. Polymer blends are highly immiscible viscous fluids. Most commercially available polymers for applications are actually blends. Complex microstructures are observed during the decomposition into multiple phases. These microstructures affect the properties of the blends. The patterns of the decomposing fluids are expected to be affected by flow. Here a systematic study will be conducted of hydrodynamic effects on the decomposition process as a function of the concentrations and degrees of polymerization of the blend components, as well as of their net repulsive interactions. ***